Japanese Laboratory Study

In this research, Dr. Coleman is analyzing the social organization of research in a Japanese laboratory in the life sciences. In addition to yielding a detailed description of everyday laboratory life, this study will devote particular attention to the reward structure and patterns of authority, cooperation and conflict among laboratory researchers, administration, and support staff. Japanese researchers appear to work in a context of lower interorganizational competition and mobility than do their American counterparts; specific features of Japanese culture and society, among them the country's educational system, funding sources, and managerial styles, may all have an effect on these differences, which in turn influence creativity and the capacity for interdisciplinary cooperation. The results of this research should shed light on sociocultural influences on research approaches, and identify those aspects of collaborative research between Japanese and Americans that require special attention in order to maximize the benefits of the joint research experience.